Numerical Investigation of the Rehology of Suspensions of Liquid Capsules and Drops

9526225 It is Proposed to use interfacial dynamics, a specific implementation of the boundary-integral method, and statistical mechanics to simulate non-dilute deferrable suspension flow, and on this basis evaluate the effective rheological and transport properties of suspensions. Three-dimensional numerical studies will be performed using local analytical solutions and code vectorization at the San Diego Supercomputer Center. The resulted code is applicable to a large range of dispersed two-phase flow phenomena, and is computer time-efficient. The research will provide better understanding and a numerical tool for suspension flow simulations useful in biotechnology, chemical and petroleum industries.